Compaction and Fire Protection Systems for the Marie Selby Botanical Gardens

This grant will allow the Marie Selby Botanical Gardens (MSBG) to transfer its unique collection of 65,000 dried epiphytic plants (plants that grow on other plants) to new, improved facilities (cabinets and compactor system) in conjunction with a move to a new, climate-controlled building. The MSBG collection is known nationally and internationally, especially for its collection of orchids and bromeliads, and is well used in education and in applied and basic research on epiphytes. The new facilities will also allow growth in MSBG activity for at least the next 10 years.